Research Initiation Award: Static and Dynamic Analysis of Nonlinear Pile-Soil-Pile Interactions

An analytical investigation will study the effects of nonlinear soil behavior on the response of single piles and pile groups under static and dynamic lateral loadings.